Workshop on Mathematical Biology and Nonlinear Analysis

This is a proposal to provide travel support for ten U.S. based junior researchers to attend the Workshop on Mathematical Biology and Nonlinear Analysis, which will be held at the Coral Gables campus of the University of Miami, December 19-21, 2014.

The Workshop will focus on the applications of mathematical methods for studying nonlinear equations that model biological processes, especially in ecology, epidemiology, and evolutionary theory. The conference will provide opportunities for junior researchers to interact with leading researchers in these areas. The workshop will feature plenary lectures by leading scientists and will hold special topic sessions where researchers will present their ideas and results. One of the aims of the conference is to broaden the education and stimulate the research of junior researchers and those from underrepresented groups. NSF funding is vital in achieving this goal.